Transport times and ages of Quaternary fine-grained terrestrial sediments using U series isotopes

This project will evaluate uranium isotope ratios of clastic sediments as a measure of the
time required for bedrock to be reduced to small grains by weathering, and then
transported and deposited as sediment. The method may open up new ways of studying and
understanding sediments, the processes that produce them, and how sedimentary processes
are dependent on climate and tectonics. Detailed physical and chemical characterization
of natural sediment from well-controlled environments will be combined with isotopic
measurements. Fieldwork consists of collecting samples of terrestrial sediment from
lakes, loess deposits, streams, and alluvial fans. The work is designed to further
evaluate the approach and also investigate variations in sediment transport time as a
function of climate and depositional environment. The combination of U-series isotopes
and cosmogenic nuclides (Be-10 and Al-26) may yield information about timescales of soil
generation, erosion, transport, and storage, and may allow important types of continental
sedimentary deposits to be dated. Intellectual merit: The research will contribute to
understanding of fundamental aspects of sedimentology and landscape evolution. The PI has
28 years experience in geochemical research, an extensive publication record, and has
trained more than twenty Ph.D. students who have gone on to successful careers in
academia, government, and private industry. U.C. Berkeley has a long record of support of
advanced scientific research, and provides ample facilities, support personnel, and
infrastructure for research and graduate education. Broader Impacts: The research has
broad applicability to geology and environmental studies. It requires knowledge and
training in mass spectrometry, analytical and nuclear chemistry, and hence is an excellent
venue for advanced education. The funding will help support a research facility that, in
the previous 15 years, has benefited 22 graduate students (10 women) 10 postdoctoral
fellows (5 women), plus more than 20 visitors, undergraduates and collaborators.